Research Project in Algebraic Geometry and String Theory

The recent breakthrough in producing the Standard Model of particle
physics within heterotic string theory is a perfect illustration of the
power of algebraic geometry at the service of physics. Using techniques
for construction of non simply connected Calabi-Yau threefolds and of
bundles on them satisfying various constraints on their chern classes and
cohomology, the PI and a collaborator have recently constructed the only
known example of a heterotic string compactification which produces
exactly the Minimal Suppersymmetric Standard Model (MSSM) spectrum of
particles and forces, with no unwanted exotic matter. This opens up
numerous questions related to investigation of the High Country region of
the Landscape of string vacua. These problems are of great interest in
both algebraic geometry and string phenomenology. Other physics questions
investigated in this proposal using techniques of algebraic geometry
include exploration of the duality between the heterotic string and
F-theory, and the Large N Duality. The purely geometric issues include
several extensions of the spectral construction and Fourier- Mukai
transforms to gerbes and non-commutative and related situations where such
extensions would have many applications. These yield a proof of Langlands
duality for Hitchin systems with arbitrary structure groups, and include
several problems about the moduli of Calabi-Yaus, their degenerations, and
the integrable systems arising from them.

String theory is the leading physical candidate for a unified field
theory, incorporating both general relativity and quantum field theory.
Algebraic geometry is the mathematical investigation of spaces defined by
algebraic equations. It provides an extermely versatile and powerful tool
for applications to string theory and to many other areas. The main thrust
of this proposal is the use of techniques from algebraic geometry to
derive the Standard Model of particle physics as a concrete instance of
string theory.